A Mini-Supercomputer for Study of Neural Networks and Computational Vision

A mini-supercomputer will be acquired to support a variety of research activities in the area of computational biology. These activities include research in the areas of: 1) neural networks, 2) computational vision, 3) visual psychophysics 4) quantum chromodynamics, and 5) computer algebra.